Reactive Infiltration Synthesis of Aluminide Matrix Composites

Processing and the mechanical behavior of aluminide intermetallics and their composites will be studied. Liquid aluminum will be infiltrated into a perform consisting of the reinforcing phase, fibers, particulates or powers of high temperature component of intermetallic Ti, Ni, Fe. The matrix is formed by reaction between the metal power and the aluminum. The research will explore thermodynamics and the reaction kinetics associated with the synthesis, and the microstructural and mechanical characterization of resulting materials at elevated temperatures. The mechanical behavior studies will guide the processing efforts.*** //